Travel Grant: Women's Graduate Cohort Project

The Computing Research Association (CRA) has been awarded funds to support travel to a workshop of 25 female graduate students in computer science. The workshop, and other activities following the workshop, are already supported by a grant from Microsoft Corporation. This proposal would increase the number of attendees at the initial workshop from 45 to 70. The purpose of the workshop, and of the follow-on activities, is to provide mentoring and other support activities for female graduate students in CS&E.